FarFetch - An Internet Based Sequence Entry Server

The investigator will establish a network server for biological sequences database entries, which will allow scientists to have access to these entries without the overhead of maintaining local copies of entire databases. This service will allow any user with an Internet confection to participate. FarFetch will allow users to obtain sequence entries in a directly usable form as opposed to conventional e-mail base sequence retrievers. Clients for the VMS, UNIX and Macintosh operating systems have been written and are in the field. Development of MS-DOS and Windows clients are planned. This award supports the purchase of the server and supporting storage equipment. Client software will be made available via anonymous FTP from the server. There will be no usage fees associated with the server.